Acquisition of an Electrospray Mass Spectrometer

We propose to purchase an electrospray HPLC mass spectrometer (single quadrupole) to carry out four diverse structure-function studies, to provide training in an emerging analytical method for graduate students and post doctoral fellows, and to provide other researchers within the Chemistry Department and UCSB campus access to a contemporary molecular mass determination method, a technique presently unavailable on the campus. The first major project focuses on both bacterial and mammalian DNA methyltransferases. The target bacterial enzyme is the EcoRI DNA methyltransferase. Ongoing work on this NSF supported project has used various LC-MS methods, and the proposed work extends this effort. Characterization of critical histidines within the enzyme is proposed; a novel electrospray LC-MS method is under development and application to the methyltransferase should identify the essential histidine(s). The proposed LC-MS method is a significant improvement over presently used spectrophotometric methods and may be generally applicable. An LC-MS based strategy is proposed to determine which elements of the mammalian cytosine DNA methyltransferase are in contact with its substrate. A related strategy is proposed to identify portions of the DNA substrate contacted by the enzyme. The extent and site of post- translational modification of the mammalian enzyme are also proposed to be investigated by LC-MS methods. The characterization of the mammalian enzyme is important for understanding what role this protein plays in gene regulation, cancer, and genetic imprinting. The second major project focuses on the acetylcholine transporter of synaptic vesicles. Identification of the acetylcholine binding site within the protein is proposed using radiolabeled photoaffinity analogs and LC-MS methods. Characterization of various site directed mutants of the transporter is proposed, including the extent to which these mutants are modified in their post-trans lational modification. A related proposed set of experiments is designed to assess how different growth conditions impact on the post-translational processing of the transporter. The proposed structure-function analysis of the transporter should help elucidate how the neurotransmitter acetylcholine functions. The third project proposes to use LC-MS methods to elucidate metal ion binding selectivities of siderophores produced by open ocean marine bacteria. The metal binding affinity and selectivity of the recently identified siderophore Alterobactin A, the first structurally characterized siderophore from an open ocean organism, will be determined. Thus the speciation of the siderophore in seawater can be determined. A novel LC-MS method is proposed to screen a large number of potential metals; application to other marine siderophores is proposed. The fourth project focuses on the use of high field N.M.R. to investigate protein- nucleic acid and protein-protein interactions. LC-MS is proposed as an additional means of characterizing the target biomolecules. The purchase of the proposed LC-MS instrument would enable the training of numerous graduate students and research fellows involved in these projects, as well as undergraduates and other individuals associated with intended minor users. This proposed training targets the increasing need in the biotechnology industry for protein chemists trained in contemporary analytical methods.